Center for Career Access Opportunities in Science and Technology

This project will coordinate programs designed to increase the numbers of minorities and women in technical and scientific professions by creating partnerships among universities, schools, the minority community, businesses and government in the Boston area, under the leadership of Northeastern University. The major programs to be used include: apprenticeships monitoring programs, family and community involvement through outreach programs, improvement of training programs for teachers, letter transmission of materials, and improved retention of students.//